Glacial-Interglacial Salinity Changes in the Upper Limb of the Thermohaline Circulation Conveyor Belt

Study of chemistry and circulation of thermocline waters in Indonesian Seaway during glacial/interglacial transitions. isotopic and faunal analyses of high sedimentation rate sequences to decipher the record of past 20 k.y. to determine the timing and nature of changes in hydrographic patterns. AMS dating on key samples will provide absolute chronology. A small exploratory award is made to prove the validity of the method.